I-Corps: Translation potential of a programmable photonic interconnect based on Mach–Zehnder interferometer meshes and magnetically programmable optical phase elements

This I-Corps project is based on the development of advanced computing hardware capable of bridging the gap between existing classical computing and next-generation quantum computing technologies. Current computing technology has high maintenance and high energy requirements. The developed technology seeks to eliminate the components that require constant calibration and maintenance and eliminate the need for continuous power in order to perform computations, requiring energy only when programming new operations. This not only reduces power consumption but also removes the inherent noise and error due to the power required for running the system. This technology may potentially reduce noise, error, and power consumption by orders of magnitude in government labs, university research facilities, and other resource-intensive facilities. These organizations require configurable photonic routing hardware that can support experimental and pre-commercial quantum systems while minimizing power consumption, control overhead, and system complexity.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of combining a Clements-type Mach- Zehnder interferometer mesh with magneto-optical phase elements designed to retain discrete programmed states. The challenges associated with control of noise, error, and drift are the most significant issues with existing quantum computing technologies. The design is based on the assumption that the inherent persistent phase from magneto-optical materials can reduce static power, control channel, thermal coupling, and operational recalibration while remaining compatible with both single-photon and coherent optical signals. This technology may mitigate these issues and improve the “uptime” of quantum computing research facilities in the immediate future, improving operational efficiencies and accelerating reliant research.